Presidential Young Investigator Award: Study of the Mechanism of Solid State Reactions and Their Controlling Factors

With this Presidential Young Investigator award from the Theoretical and Computational Program of the Chemistry Division, Professor Zheng will utilize newly developed computer simulation technology to study the mechanism of solid state reactions. Three issues will be addressed: (1) What is the solid structure with global minimum free energy given a certain stoichiometric ratio of reactants? (2) Given a structure, what is the typical kinetic barrier in a solid reaction from the reactants to the products? (3) What is the microscopic mechanism of a solid state reaction? The Monte Carlo algorithm or molecular dynamics method combined with a simulated annealing optimization scheme will be used to search for the global or local free energy minimum. The kinetic barrier will be computed by means of the free energy perturbation method of McCammon. The reaction activation free energy will be calculated classically, or quantum mechanically with the Feynman path integral technique. %%% In this project theoretical and computational methods will be used to predict the products of solid state reactions, the magnitudes of the barriers to such reactions and the mechanisms by which these reactions occur. The results are expected to be useful in guiding the synthesis of novel materials.